Collaborative: Viscoelasticity of Nanoparticle Dispersed Polymer Melts: Experiment and Simulation

TECHNICAL:

Experiments and theory will be combined to delineate why adding nanoparticles to a polymer improves its mechanical properties. Attention is focused on two aspects: (a) Effect of Particle Size: It is now accepted that the modulus of a polymer melt can be increased by several orders of magnitude on the addition of particles. This reinforcement is critical to applications, e.g., tires or under the hood, since unfilled polymers are too "soft" to be used in these contexts. Since this modulus reinforcement is conjectured to go through a maximum as a function of particle size (in the 10 nm size scale), there is apparently an optimum nanoparticle size for this property. Proving the existence of this postulated maximum, and exploring its molecular origins, is a focus of this proposal. (b) The Payne Effect: While the increase in modulus achieved through the addition of nanoparticles is critical to certain quiescent properties of the material, this can also make the nanocomposites hard to process. The Payne effect, i.e., the orders-of-magnitude decrease of the mechanical strength of a material with increasing strain, circumvents this problem without compromising the materials' end use behavior. Understanding the molecular underpinnings of the Payne effect is then the second, interrelated goal of this proposal. In particular, the role of the bound polymer layer vs. polymer bridges between particles in this context will be critically examined by devising materials where the relative proportion of these two is varied. This proposal will exploit the unique capabilities of the two PIs to study these interrelated aspects of the rheological behavior of nanocomposites with fully dispersed nanoparticles, using a combination of experiment and simulation.

NON-TECHNICAL:

Plastics are by now ubiquitous in many contexts, such as in packaging. Less familiar is the use of these materials in structural applications (e.g., building materials) or under the hood, with these deficiencies being attributed to the relative soft mechanical behavior of these materials. An ongoing goal has been to improve this particular aspect of polymers, and it has been conjectured that the addition of nanoparticles is one facile means of achieving this goal. The proposed work will target this issue and systematically and critically evaluate the role of nanoparticles on the mechanical behavior of plastics. The proposed research activities will be coupled to extensive education and outreach activities that target students at the K-12, undergraduate and graduate levels. The PIs will aim to recruit/retain underrepresented minority students into science/engineering disciplines at the graduate level and beyond. In particular, interactions have been developed with Florida A&M University and Grambling State University (both HBCUs) with the goal of recruiting undergraduates into our research program. The PIs will continue to work with local city high school teachers with the goal of giving students, especially seniors, "hands-on"research experience.